Presidential Young Investigator Award: Topics in QCD and the Weak Interactions

It is proposed to exploit some of the new information on hadronic structure which is becoming available as a result of recent experiments on polarized targets. There are interesting form factors which provide information on the structure of the proton, measurable in elastic neutrino-proton scattering. New structure functions can be measured in deep inelastic scattering from higher spin targets. Electrodynamics in the presence of anomalous vortices will also be studied. The vortices exhibit birefringence and optical activity; there is antiscreaning of charge. This leads to relations, which will be investigated, among quantization of charge, anomalies and the periodicity of the theta parameter. Efforts will also be made to put limits on the mass of the Higgs boson and to develop a model for fermion masses based on flavor democracy.